Center for Analysis and Prediction of Storms (CAPS)

The Center for Analysis and Prediction of Storms (CAPS) at the University of Oklahoma proposes to continue the development of techniques for the numerical prediction of small-scale weather, especially aimed at substantially increasing the accuracy and reliability of warnings of hazardous weather associated with thunderstorms. The program will focus on: 1) the development and testing of a new, easily modified prediction model aimed at being highly portable among different styles of computer architectures and sophisticated in its physical and numerical formulations; and 2) the research and development reqired to assimilate new storm- scale observational data into such a prediction model. To complement these goals will be a variety of related studies designed to provide insight into storm predictability, promote the development of data management and visualization tools, and evaluate strategies for the use of massively parallel computers in solving complex fluid flow problems.